Developing a Rural Regional Training Model for Excellence in Science/Math Technology Teaching: A Planning Grant Proposal

This planning grant will lead to a full proposal from the Bozeman Public Schools. The planning grant will initiate an effort to "create a unique and innovative systemic change model for dissemination of new skills unique to rural schools." Through a myriad of task groups, issues are examined in the context of rural education where resources are often not available locally and collaborative networks are difficult to establish. The focus of the project is on individual teacher change or adaptation through a school district based collaborative re-training project for the region. The planning grant begins the examination and compilation of strategies that will lead to a Teacher Enhancement proposal. The cost sharing is estimated at 22%